Moment maps and J-holomorphic curves

DMS-0072267
Kai Cieliebak

The focus of this project is the investigation of a new system
of nonlinear partial differential equations. These equations
arise naturally in the study of J-holomorphic curves in
symplectic manifolds with a Hamiltonian group action. Instances
of these equations include the vortex equations, the
anti-self-dual Yang-Mills equations, and the Seiberg-Witten
equations. Solutions of the equations give rise to invariants
of Hamiltonian group actions. These invariants are related via
an adiabatic limit to the Gromov-Witten invariants of the
symplectic quotient by the group action. This project pursues
the following goals: (1) achieving a deeper understanding of
known connections between invariants; (2) establishing new correspondences between invariants; (3) using the correspondences between invariants to compute invariants. Invariants that can be addressed in this way include: Donaldson invariants and
Seiberg-Witten invariants of certain smooth 4-manifolds;
instanton Floer homology and Seiberg-Witten Floer homology
of certain smooth 3-manifolds; Gromov-Witten invariants,
quantum cohomology and Floer homology of symplectic manifolds.

A symplectic manifold is a generalisation of the phase space
in classical mechanics. Geometric properties of this space
influence the behavior of mechanical systems. For example,
compactness of the space forces mechanical systems to admit
periodic motions. This project focuses on geometric properties
of symplectic manifolds with symmetries. Symmetries of a
mechanical system lead to conserved quantities represented
by a moment map. Classical examples of moment maps are linear
and angular momentum. This project lies in the intersection
between two large branches of symplectic geometry: the study of J-holomorphic curves, and the study of Hamiltonian group
actions. These branches have traditionally had little overlap.
Moreover, the project touches several areas adjacent to
symplectic geometry: Hamiltonian dynamics, quantum field
theory, low-dimensional topology, and algebraic geometry.